Enhancement of Deep Acceptor Activation in Semiconductors by Superlattice Doping

9714047 Schubert Research in III-V nitride material system has resulted in significant improvements in material quality over the last few years, and has resulted in the demonstration of high temperature transistors, efficient light emitting diodes, and lasers emitting in the ultraviolet and blue regions of the optical spectrum. However, in order to produce, reliable GaN-based devices, several materials challenges must yet be overcome, including increasing the p-type dopant concentrations attainable in these structures. In this work, Prof. Schubert and his graduate student propose to overcome this p-doping limitation by means of "superlattice doping". Superlattice doping, the short period compositional modulation of uniformly doped semiconductors, promises to decrease the effective activation energy of acceptors in GaN, thereby enhancing the free hole concentration by approximately one order of magnitude. Abrupt and parabolically graded composition modulation in the AlGaN/GaN material system will be investigated and the influence of the grading on in-plane and perpendicular hole transport will be studied. ***